University of Tennessee, Knoxville High Performance International Internet Services

This award to University of Tennessee, Knoxville, entitled "MirNET: High-Performance International Internet Services" (MirNET-HPIIS) provides support for a High Performance International Internet Services connection between high-performance research institutions attached to the Russian Backbone Network (Rbnet) and the vBNs.